MRI: Acquisition of a Graphics Supercomputer for Synthetic Environment Serving Science and Engineering

EIA-9871222 Fuchs, Henry Bishop, Gary University of North Carolina Chapel Hill MRI: Acquisition of a Graphics Supercomputer for Synthetic Environments Service Science and Engineering The proposed instrument is a state-of-the-art real-time graphics computer, a Silicon Graphics Reality Monster. This machine intimately combines eight high-performance graphics rendering pipelines with 32 conventional RISC processors. This instrument will accelerate research on real-time synthetic-environments applications in science and engineering. The principal projects set forth in this proposal are those for which both the exceptional graphics power and the intimately coupled high-performance computing power are crucial for enabling otherwise impossible research advances in the next three years. The projects include: rendering images of the world at nanometer scales as data come from atomic-force microscopes; augmented reality for applications such as giving the surgeon a view into the body using the images from inside the body, through a laparoscope; rendering massive models of complex man-made structures, such as ships and factories, for interactive walkthroughs to examine structures and make design decisions; rendering directly from multiple images of remote real-world scenes as well as from traditional geometric models; rapidly rendering to large, multi-megapixel displays either head-mounted or covering the walls; tracking outdoors for augmented reality.